Texture Development in Rare Earth-Iron-Boron Magnets

This program explores the basic phenomena that lead to the development of crystallographic texture during hot deformation of rapidly-quenched neodymium-iron-boron magnets. Emphasis is placed on two aspects of the texture: (1) the intergranular phases in the magnets, how they differ in magnets made by conventional sintering compared to rapid solidification, and how they depend on the presence of additional alloying elements such as copper. High resolution electron microscopy and Auger spectroscopy are used to explore these topics. (2) Because the driving force for texture formation is believed to be a difference in elastic energy between grains of different orientation under stress, data is needed on the elastic constants above ambient temperatures. Sintered magnets that are properly oriented are to be measured to determine the elastic constants parallel and perpendicular to the c-axis as a function of temperature, up to 700 degrees Celsius. %%% Texture plays an important role in the properties of magnetic metal alloys. This research provides important information on the processing factors controlling texture in an important class of magnet alloys.